A Combined Mathematics Laboratory and Classroom Environment

Mathematical Sciences (21)

The objectives of the project are to use a laboratory classroom to implement curricular changes in courses taken by pre-service teachers of mathematics. The objectives are achieved by adapting the Calculus, Concepts, Computers, and Cooperative Learning project developed by Ed Dubinsky of Georgia State University. A major outcome of the project is to create an environment that blends technology into the teaching and learning of mathematics.

A main component of the project is the construction of a new classroom with laptop computers connected to a university wide server. This laboratory provides the correct properties needed to help achieve the objectives. The laptop computers have a low profile, which helps to maintain a more balanced classroom atmosphere. The project emphasizes integration of technology in education and teacher preparation. From this project pre-service teachers obtain greater exposure to technology in a setting that exemplifies ways that software and collaboration are used to teach mathematics. An ongoing evaluation and dissemination program is fully integrated into the project.